New Methods for the Analysis of Data from Large Geomagnetic Arrays

The PI has developed a powerful method for analysis of geomagnetic array data, for estimation of electrical conductivity variation within the mantle. Through this grant he will apply the method to larger numbers of stations with greater spatial variations than before. The method has great promise, and this grant will establish the research program of this young investigator.